Research Experiences for Undergraduates in Chemistry at Pennsylvania State University

Professor Andrew G. Ewing and other members of the Chemistry Department of Pennsylvania State University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from laser spectroscopy and thermochemistry to template synthesis of oligomers and computer modeling of semiconductors. Students will attend two weekly seminar series on research and on instrumentation and will prepare oral and written final reports.